CAREER: Continuous Change Management of Component-Based Software

Configuration management (CM) is a software engineering discipline
that centers on managing the evolution of the artifacts that are
continuously produced and changed over the course of a software
development project. The combined move towards developing software
out of sets of components and managing software after it has been
delivered to its customers radically changes the nature of CM,
breaking several of its fundamental assumptions.

Addressing these issues, the objective of this research is to
develop and empirically evaluate the models, policies, and tools
that will lay the foundation for the creation of the next
generation of configuration management systems---those capable of
managing, in a seamless and continuous fashion, component-based
software throughout its life time. The research hypothesizes that
architecture description languages are the key to providing this
functionality: they create a single abstraction through which all
CM functionality can be provided. Specifically, we propose to
build architecture-based CM models, associated new development
and deployment policies, and the supporting tools necessary for
demonstration and evaluation.

Parts of the research will be used to seed the educational aspects
of the proposal: to establish the undergraduate research factory in
which teams of undergraduate students will be educated in carrying
out research projects.